Scalable Visualization and Constrained Interaction for Large Graphs -- Supporting the Collaborative Analysis of High-dimensional Data Sets

In this research project, the PI proposes to develop novel methodology to visualize and interact with large interconnected high-dimensional datasets represented as large unstructured graphs. The underlying semantics for the nodes and edges in such a graph are to be kept flexible, but the ultimate goal is for an analyst to acquire an understanding of the data universe as a whole, and to enable him or her to issue and resolve specific data queries. An analyst should also have an easy way to inform a colleague about the insights gathered during their own interaction with the system, including evidence chains and new hypotheses.